Laboratory Instrumentation for Improvement of Lower DivisionScience Curriculum: Biology, Chemistry, and Physics

Additional laboratory instrumentation has increased the range and scope of laboratory experiments possible in the biology, chemistry and physics courses. The grantee provides funds for this project that are an equal match for the NSF award.